Topics in the Geometry of Groups and Complexes

Abstract

Award: DMS-0906962
Principal Investigator: Noel Brady

The long-term objective of this research agenda is to understand
the large scale geometry of groups and complexes. Specific
objectives include the analysis of higher dimensional filling
invariants of groups, higher filling invariants at infinity
(higher divergence), and investigating the structure of
asymptotic cones of finitely presented groups. Other specific
objectives include the use of combinatorial Morse theory in
understanding virtual fibering in certain classes of groups, and
in developing an approach to the relator gap problem. The
principal investigator also intends to compare non-positive
curvature methods and topological methods (using stable
commutator length) for proving the existence of surface subgroups
in various classes of hyperbolic groups.

Groups are used by mathematicians to study symmetry. A group is
just a collection of symmetries of an object. Examples include
the geometric symmetries of a wallpaper pattern, or of a crystal
structure, or of an Escher painting, or the algebraic symmetries
associated to roots of polynomials. Mathematicians have studied
groups intensively as abstract algebraic objects since the 19th
century. In the 1980's M. Gromov proposed that we consider groups
as geometric objects, and began to derive deep connections
between the geometric and the algebraic properties of groups. One
theme which emerged from Gromov's work is that the geometric
properties which have deep algebraic consequences are not local
properties, but rather coarse or "large scale". For example, and
infinite ladder and an infinite straight line are not locally
alike, but are large scale alike, and their symmetry groups will
have many algebraic similarities. The PI investigates large scale
versions of isoperimetric problems (area versus perimeter length
problems) in groups, and also the geometry of coarsely negatively
curved groups. These investigations help deepen our understanding
of the nature of symmetry.